Laser Annealing of Plasma Deposited High Critical Temperature Superconducting Thick Films and Devices (REU Supplement)

This research includes an analysis and extension of the plasma spray process, the establishment of laser annealing parameters, development of laser etching techniques, design and fabrication of thick film devices for high frequency applications, acquisition of families of test data, and optimization of a proof-of-concept system using plasma spraying, laser annealing, and laser etching for the fabrication of microwave, millimeterwave and sub-millimeterwave devices. An important aspect of this program lies in the development of processing techniques for large scale production of electronic and microwave components.